Global Seismograph Network Improvements

9319923 Hutt The Earth's deep interior remains a major scientific frontier that holds the key to understanding the origin of the planet, its evolution through geologic time to the present structure, and the internal causes of plate dynamics, earthquakes, volcanism, and the geomagnetic field. Inaccessible to direct observation below a few kilometers (the limit of drilling and exposure by erosion) the Earth's crust, mantle, and core are primarily studied through their interaction with seismic waves. Recent developments in seismic sensor design, digital data acquisition, transmission, and storage techniques make possible dramatic improvements in the resolving power of seismic imaging methods. The Incorporated Research Institutions for Seismology, or the IRIS Consortium, is composed of 85 U.S. universities with research and teaching programs in seismology. It serves as a national facility for the development, deployment, and support of modern digital seismic instrumentation, and its mission is organized into three major program elements: (1) The Global Seismographic Network (GSN) program provides the U.S. contribution to an international network of 128 permanent, standardized, very-broad-band (VBB), wide dynamic range digital seismic stations at a spacing of approximately 2000 km around the globe. (2) The Program for Array Seismic Studies of the Continental Lithosphere (PASSCAL) aims to establish a U.S. national resource of 600 portable seismometer systems available for field deployment in specific regional seismic imaging experiments and for rapid response to earthquake studies. (3) The IRIS Data Management System (DMS) aims to provide the national and international seismic research community with timely access to data from the GSN and PASSCAL programs. It archives and distributes the data from these programs and facilitates the standardization and exchange of data. The IRIS Consortium so far has accomplished the following speci fic tasks: (1) It developed the IRIS-1 and IRIS-2 lines of standardized permanent station instrumentation employing VBB sensor technology for the GSN. Two IRIS operations and maintenance facilities for the GSN were installed at the U.S. Geological Survey's Albuquerque Seismological Laboratory and at the University of California, San Diego. Currently, 48 GSN VBB stations have been installed world- wide and are returning data. (2) The PASSCAL program has developed two instrument centers to store, repair, and deploy its standardized portable seismographic instrument packages. The PASSCAL instrument pool now has an inventory of over 200 units housed at PASSCAL instrument centers located at Lamont-Doherty Earth Observatory in Palisades, New York and at Stanford University, California. PASSCAL instruments have been used in a large number of planned field experiments, and were also rapidly deployed for aftershock studies of the Armenia (1987), Loma Prieta (1989), and Landers/Big Bear (1992) major earthquakes. (3) The DMS has established GSN data collection nodes at the Albuquerque Seismological Laboratory and at the University of California, San Diego. An IRIS central data archive and distribution center is now installed in Seattle, Washington, operated by the University of Washington. Through Internet, U.S. users (and European users via the ORFEUS data center in the Netherlands) have access to the continuous data streams from most of the existing GSN stations, to major-event waveform data in near-real time, and to special datasets from important earthquakes, as well as from PASSCAL field experiments. This award provides FY-1993 funding for the participation of the U.S. Geological Survey's Albuquerque Seismological Laboratory in establishing the IRIS Global Seismographic Network and for related data management activities. ***